A Scientific Information Management Schema for the EndeavourPortion of the Juan de Fuca Ridge Observatory

9633609 Wright This project will collect and archive all available geophysical, geological, geochemical and biological data on the Endeavor segment of the Juan de Fuca Ridge. The data will be made available over the world-wide webb and will be maintained in a GIS format, and in a flat-file format. The database is in support of the RIDGE observatory effort.